Spatial regulation of thermomorphogenic development by HY5 and SPAs in Arabidopsis

This project investigates how environmental signals, specifically temperature, regulate gene expression, resulting in plants with morphological and physiological characteristics suited to higher environmental temperatures, and how these changes are coordinated across tissues within a plant. As sessile organisms, plants rely on sophisticated sensory and signaling networks to perceive and respond to changing environmental conditions. By integrating diverse external cues, they modify growth and development to optimize light capture and resource allocation. This project will investigate the molecular mechanisms by which environmental signals regulate plant growth and adaptation in Arabidopsis. This project will contribute to training the next generation of scientists in plant molecular biology, gene regulation, and agricultural biotechnology – fields central to addressing global challenges in food security and sustainability. Educational resources will be developed for biotechnology micro-credentials that university students may earn to master plant molecular biology and biotechnology research tools and skills, contributing to expanding the workforce in biotechnology. In addition, development and dissemination of educational toolkits will greatly expand educational opportunities to high school students in scientific research. Presentations in biology classes will not only teach young students about biotechnology, but also improve communication and teaching skills of participating researchers. K-12 students will be exposed to a modern research facility, introduced to the scientific method in a fun and engaging way, and inspired to choose a scientific career focusing on biotechnology.

Despite considerable progress, the mechanisms by which environmental signals regulate gene expression to drive developmental plasticity in plants remain poorly understood. This study will make a fundamental contribution by revealing how plants utilize distinct kinase–transcription factor modules to spatially regulate development in response to high ambient temperatures. Specifically, it will elucidate a novel mechanism by which a kinase coordinates tissue-specific translocation from shoot to root of a transcription factor through phosphorylation. Furthermore, our findings will expand our understanding of thermomorphogenesis by identifying new molecular components that are involved and providing deeper insight into how phosphorylation influences protein transport between tissues. These advances have the potential to inform biotechnological strategies for improving crop resilience to elevated temperatures.